Laser Control of Molecular Motion and Quantum State Character by Coherence Effects

This project focuses on achieving control of molecular motion and quantum state character through coherence effects inherent in the laser molecule interaction. In addition, applications of these effects in photodissociation dynamics will be investigated by using both the enhanced level of state selectivity as well as the possibility of creating coherent superpositions of quantum states for the purpose of developing possible bond breaking control mechanisms. Specific experiments include alignment using the Autler-Townes splitting, modification of the singlet vs triplet character of a dressed molecular wavefunction, measurement of the transition dipole moments using electomagnetically induced transparency and finally control of photodissociation and bond breaking dynamics. In a broader sense, the project will provide research opportunities for minority students as well as create opportunities in industry for the undergraduate students.